Presidential Young Investigator Award

This project addresses experimental validation of current analytical work in robotics as well as the initiation of new work in robotics. The principal Investigator has a strong background in the mechanical aspects of robotics, including manipulator force control, redundant manipulator kinematics, the analysis of dynamically stable legged locomotion, multi fingered dexterous hand manipulation, and modular self organizing robotic systems. All of these topics are aimed at developing sophisticated multi degree of freedom machines to enhance automation. The applications are quite broad, and encompass space exploration, medicine, and hazardous waste removal. This project will implement both a prototype hyper redundant manipulation and locomotion system as well as a dynamically stable legged robotic system. They will be used to demonstrate and validate previously developed analytical models and algorithms, and to identify future research needs in manipulator kinematics and dynamics.